Mathematical Sciences: Research in Several Complex Variablesand Applications

The principal investigator will study embeddings of Cauchy-Riemann manifolds, and their deformations. This subject has ramifications in perturbation theory and singularity theory. He will also study loop spaces on Cauchy-Riemann manifolds in complex geometry.